The Topology of Hydrodynamics

PROPOSAL: DMS-9971629

PRINCIPAL INVESTIGATOR: Robert Ghrist

ABSTRACT:

The principal theme of this project is the development and refining of topological techniques for answering dynamical questions about inviscid fluid flows (the Euler Equations) in the full three-dimensional setting. Through a correspondence between Beltrami fields and the Reeb dynamics of contact structures, one can import techniques from contact topology and pseudoholomorphic curve theory to answer questions of existence of solutions and of forced recurrence. In addition, knot-theoretic techniques shed light on the global properties of the Euler equations on Riemannian manifolds. Goals of this project include the resolution of the Weinstein Conjecture on solid tori (which would imply that steady force-free fields in a tokamak have closed field lines), the spectrum of knot types which can/must appear as closed flowlines in steady Euler flows, and the implications of the tight/overtwisted dichotomy in the hydrodynamical context with respect to hydrodynamic instability and energy minimization.

One of the enduring challenges in science is the comprehension and taming of fluid behavior: from tornadoes to ocean currents, we live in a world of complicated fluid dynamics. All of these phenomena have mathematical manifestations --- projections onto a simplified abstract setting whose analysis yields clues to the workings of the physical world. This project will focus on the equations governing ``perfect'' fluids: models appropriate for certain non-viscous fluids and plasmas alike. Emerging techniques from global geometry and topology provide tools for attacking problems heretofore beyond the reach of analysis. Surprisingly, such seemingly unrelated questions as ``How do strings tie up into different knots'' and ``What does geometry in four dimensions look like'' are closely tied to questions of recurrence and stability in steady fluid flows.